Instrumentation for Plant Cell and Molecular Biology Laboratory

A new laboratory course in Plant Cell and Molecular Biology will be developed, and laboratories in the existing courses in Plant Physiology and Plant Development will be modernized. The equipment to be purchased includes electrophoresis modules, an inverted microscope, an upright microscope with fluorescent light source, a laminar flow sterile transfer hood, a shaking water bath with temperature control, a wavelength scanning spectrophotometer with linked computer, growth chambers, and plant growth tables. The new course will focus on the isolation, characterization, and analysis of plant proteins and nucleic acid; techniques of cell transformation using Agrobacterium; culture manipulations. This will give the department an up-to-date curriculum in modern plant biology. The college will provide 50% matching funds.